Computational Applications Research Engagement for Undergraduates

The Historically Black Colleges and Universities - Undergraduate Program provides support to design, implement, study and assess efforts to increase the numbers of students and the quality of their preparation by strengthening science, technology, engineering and mathematics (STEM) education and research. This project at Cheyney University of Pennsylvania provides a strategic approach to recruiting and retaining computer science undergraduates by involving them in research projects that lead to curriculum enhancements in undergraduate courses.

This one-year pilot project seeks to create a set of research tools and projects to involve undergraduate students in computer science related research, expose them to learning activities outside of the classroom, and subsequently capture learning objectives and develop learning modules to be incorporated into undergraduate computer science courses. The students will conduct research at the home campus, as well as on the campus of Drexel University. The project is guided by formative and summative evaluation.